Teaching Hands-On Investigative Biology in High School "On AShoestring"

A strong need exists for more inclusion of hands-on investigative science in the high school curriculum. Current school budgets, however, often lack of money to purchase adequate materials and equipment for hands-on science. One immediate remedy for the problem is the production and dissemination of a laboratory manual of effective hands-on investigative activities that require little or no money to implement. The National Association of Biology Teachers (NABT) staff plans to recruit excellent, experienced high school teachers to write and field test these activities, modifying them as needed for special populations of students, including the physically disabled, gifted, and disadvantaged. NABT staff members will oversee all phases of the project, and biologists and science educators will review materials to assure their quality. The most successful activities will then be distributed to high school biology teachers throughout the country through mailings and in-service workshops. The goal of the project is to increase the teaching of biology as a process rather than as a collection of facts. The objectives of the project are to enable the teaching of hands-on investigative biology by (1) providing teachers process-oriented biology. High school biology teachers and their students will benefit from this project.